Wind Energy Technology

Laramie County Community College, in consultation with Wyoming's Governor's Office, Wyoming's Business Council's State Energy Office, the National Renewable Energy Laboratory's Wind Technology Center, and Wyoming's wind farm industry, is designing and implementing a career pathway in wind energy technology that includes (1) a wind energy technician certificate program, (2) a wind energy mechanic diploma program, (3) a wind energy Associate of Science degree program, and (4) a summer bridge program for high school students. The project is also preparing and delivering informational presentations on wind energy technology for the public. The project addresses the paucity of wind energy technology educational programs in America and the growing workforce needs of the western region's expanding wind power industry.